Mathematical Sciences: On the Determination and Constructionof Efficient and Robust Experimental Designs

Using the optimal choice of experimental conditions or of arrangements of experimental units or material maximizes the precision of the inferences drawn from the experiment. This research will construct mathematically designs which are efficient and robust in the presence of correlations among adjacent experimental units, designs based on clustering techniques which are efficient and also permit detection of departures from model assumptions, and designs which can be used simultaneously or subsequently to separate effects of factors or combinations of factors which are confounded in an initial fractional factorial screening experiment.